Mathematical Sciences: Symplectic Topology & Riemannian Geometry of Lagrangian Manifolds

Professor Oh will continue his work on aspects of symplectic geometry related to minimal surfaces,mean curvature flow and Kahler-Einstein manifolds.This work follows on from spectacular work of Arnold and Floer concerning the geometry and toplogy of Lagrangian submanifolds in symplectic geometry.